Mathematical Sciences: Mathematical Problems in CompressibleFluid Flow

With this proposal the principal investigator will continue his analytical and numerical studies of discontinuous solutions of mathematical models of viscous, compressible flows in two and three space dimensions. In particular, he will investigate the well-posedness of the boundary value problems for the systems of nonlinear hyperbolic equations resulting from the models, and he will design improved numerical schemes for resolving the discontinuities present in the solutions. Very often mathematicians and fluid dynamicists study one- dimensional models of complicated flow phenomena in order to gain insights into the behavior of real flows in two and three space dimensions. In the present grant the principal investigator will extend some of his results for one-dimensional models of the gasdynamic equations to more realistic models in higher dimensions. Problems in more than one dimension are difficult, and so the investigator will employ a combined analytical- numerical approach to study discontinuous solutions called "shocks".